On-Line Monitoring of Safety-Critical Embedded Systems

Embedded systems comprising many interconnected microprocessor-based controllers play an increasingly important role in daily life. They are typically systems-on-a-chip (SOCs), which are customized for complex applications, and are required to be inexpensive, available and safe. A key characteristic of SOCs is their extensive use and reuse of standard hardware and software modules referred to as intellectual property (IP). This project investigates the basic properties and design requirements of IP-based embedded systems that have stringent safety and availability goals. It focuses on the problems of low-cost monitoring of system operation in real time to ensure that prescribed design objectives are met.